A Quasi-Dimensional Engine Model Using Fractal Geometry

Fractal geometry is a mathematical treatment of the geometry of rough surfaces that has been applied recently to describe a generic turbulent flame. The proposers believe this method may provide a mechanism for a modeling breakthrough for the 4-stroke homogeneous charge spark-ignition (SI) piston engine application. Unlike the burning rate models used in previous quasi-dimensional engine codes, the proposed model for the turbulent burning rate will not require experimental calibration of adjustable modeling constants. The sensitivity of the model predictions to various modeling parameters, such as the fractal dimension and the scale of the large eddies, will be investigated. The model predictions will be tested against available experimental data. The availability of a fractal based turbulent diffusion model would enable designers to predict combustion phenomena with a model both simpler and more generic than the current ones. The current need for guessing and experimental checking would be largely eliminated, and computer performance could be dedicated to other aspects of engine combustion (e.g. geometrical aspects) not currently manageable with the existing unwieldy turbulence models.